Small Grant for Exploratory Research: A Novel Application of Total Internal Reflection Microscopy: Electrokinetic Lift

Total Internal Reflection Microscopy (TIRM) is a new technique which allows for the measurement of interaction forces between a single colloid particle and a flat plate. In this technique, a laser beam is reflected off of a glass slide at a small angle of incidence such that light is not refracted through the plate, but only reflected. This total internal reflection produces an evanescent wave which does propagate normal to the surface. A solution containing colloid particles, enclosed in a chamber, is placed on the glass slide, and the colloid particles scatter the evanescent wave. The scattering intensity decays exponentially with the separation distance of the particle from the wall. The scattering intensity is measured by a photomultiplier tube, and from this measurement, the instantaneous separation distance of the particle from the wave can be measured. The PI has used this technique to measure the effects of gravity and double layer forces on the equilibrium separation of a colloid particle from a surface. The present effort extends the technique to the measurement of colloid forces during viscous flow. Specifically, the PI proposes using this method to measure colloid particle - plate separation distances when fluid is flowing across the plate. Radiation pressure will be used to immobilize the sphere so that scattering intensity can be measured, and results will therefore be obtained for separation distances of a stationary colloid particle with fluid streaming about the particle. The PI has already developed an electrohydrodynamic theory for the forces exerted on the colloid particle. These calculations reveal the existence of a lift force which causes the sphere to migrate away from the plate wall irrespective of the surface charge. In the absence of double layer forces, this lift force is equal to zero. With the aid to the TIRM experiments, the PI hopes to verify the existence of the electrokinetic lift force.